Amino-Carboxy Type Captodative Radicals

An investigation of the chemical and physical consequences of captodative radical stabilization will be conducted for a series of 2-oxomorpholinyl-3-yl radical species. The extent of radical stabilization by captodative effects will be determined by photoacoustic calorimetry and photovoltammetry. In addition to the characterization of the reductive properties of captodative radicals, their ultimate use as centers for high spin polymers will be assessed by synthesis of amide coupled oligomers and polymers. Dihydropyrazines derived from the oxomorpholine structures will be employed to make conductive CT complexes with a variety of strong electron acceptors. %%% This grant from the Organic Dynamics Program suppports the continuing investigation by Professor T. A. Koch at the University of Colorado. A study of radical species stabilized in a unique manner by groups attached to the molecule which are able to push and pull electrons by virtue of the electronic nature will be conducted. A particular interesting part of the research will focus on the ability of specially designed molecules of this variety to form complexes with electron acceptor compounds which are capable of conducting electricity. In addition, it is proposed to utilize these radical species in polymers to generate materials which have unique magnetic properties. Such materials have potential applications in fabrication of electrical devices.